The Lycopods - a Symposium at the 40th Annual AIBS Meeting in Toronto, Canada, 6-10 August, 1989

Dr. Judith Skog of George Mason University, working with her Smithsonian colleague Dr. William DiMichele, has organized a day- long symposium of botanists and paleontologists to synthesize morphological and genetic information on the most ancient lineage of vascular land plants, the lycopods. Modern-day pine moss and quillworts are among the surviving species of this group, which in its long fossil history included large trees of the Carboniferous and other forms contributing to the great coal beds of North America. Paleontologists will analyze the patterns of diversification and of extinction that characterize the group throughout its 400 million year history, and botanists will describe the morphological and genetic variability present in the world's living species and assess reasons for the current evolutionary status of the group. Researchers from the U.S., Denmark, and Britain will present papers at the symposium, thus representing the full range of current study on these primitive land plants.